Technology Camp

The Technology Summer Camp provides an environmental science and engineering program for rising ninth grade African-American, Hispanic, Native-American and Pacific Islander students. The camp involves students, through group interactive activities, in the excitement of the process of science and engineering and will expose them to a wide variety of career options and mentoring experiences. The program's goal is to encourage students to pursue rigorous math and science training in high school and to begin considering the many options for scientific and technological education at the university level, as well as to make students more aware of science and technology as a social endeavor.